U.S.-European Union Cooperative Research: Patterns in Nonequilibrium Systems and Applications to Wide Aperture Nonlinear Optical Systems

9404732 Moloney This three-year award supports U.S.-European Union (E.U.) collaborative research in passive and active nonlinear systems. The U.S. investigators are Jerome V. Moloney and Ewan M. Wright, of the University of Arizona and Alejandro B. Aceves of the University of New Mexico. The European team will be led by John G. McInerney of University College, Cork, Ireland and includes other researchers from Denmark, France, Germany and Italy. The project sets up a summer research institute in nonlinear optics at University College in Cork where established experts, postdoctoral fellows and students from both sides of the Atlantic will meet annually for joint research, dissemination of results and special courses. NSF funds will support primarily the travel of U.S. postdoctoral fellows and graduates students. The European participation is funded through the E.U.'s Human Capital and Mobility Program. An interdisciplinary approach to problems in nonlinear optics involving the disciplines of physics and applied mathematics is the focus of the research. The investigators will emphasize control and manipulation of high intensity outputs of large aperture semiconductor amplifiers, lasers and coupled fiber arrays. Semiconductor lasers and optical fibers underpin many vital technologies in telecommunications and advanced manufacturing. The project will advance our understanding of the interaction of light fields with nonlinear optical materials. Results could be applied to new and more advanced systems. The project is of significant benefit to the U.S. community. It provides access to a network of excellent European laboratories on topics related to NSF's strategic research initiatives in high performance computing and advanced manufacturing. The effort also focuses on future scientists. The U.S. postdoctoral researchers and graduate students, through sustained interaction over three years with European counterparts, will establish research connections t hat are likely to endure throughout their careers. ***